CSR--PDOS: Autonomic Systems: Integrating Machine Learning with Computer Systems

Computer systems are becoming victims of their own success. Deployed
software has orders of magnitude more users, software environments,
and usage patterns than it has in testing labs, which leads to two
fundamental problems. First, software complexity accounts for a large
fraction of system cost---the cost of administering, configuring,
updating, performance tuning, and supporting systems is surpassing the
cost of the hardware. Second, software complexity becomes a
first-order limit on key system properties like reliability,
performance, and usability.

The goals of this work are to build prototype software systems that
integrate machine learning to simplify operation, avoid performance
problems, and make efficient use of computer resources. For
distributed systems like web services the key goals are avoiding
performance pitfalls and making efficient use of computing resources.
Software support addresses the problem of configuring software and
fixing it or the environment when something goes wrong. Autonomic
network diagnosis requires the system to identify and correlate events
to reach a diagnosis for the state of the network. The work will address
the security problems of information leakage that arise when mutually
distrustful parties share machine learning models, as they might for
software support (software vendor and user) and network diagnosis
(competing network providers).